Task Order Number 161 to NSF Contract CPO-9596088

Abstract This action funds a task order with Friday Systems Services, Inc. for support services for the Division of Biological Infrastructure's Instrumentation and Instrument Development Activities.